Concentrations of Individual Ionic Species in the C02-NH3-H20 System from C-13 NMR Measurements

9312513 Poling The successful description of phase equilibria in aqueous-weak electrolyte systems requires an accurate description of the liquid phase composition. In models that are now used, concentrations of all the ionic species in such a liquid phase are calculated, but these calculated compositions are not based on experimental determinations of true ionic compositions. To reliably evaluate existing models, and develop improved models, experimental determinations of the liquid phase compositions will be essential. The goal of the proposed research is to determine the concentrations of the ionic species in a typical aqueous-weak electrolyte system. Specifically, it is proposed to use carbon- 13 NMR to determine the concentrations of the carbonate, bicarbonate, and carbamate ions in equilibrium in the liquid phase for the CO2 -NH3-H20 systems. The behavior of the carbonate-bicarbonate equilibrium is well established. But in spite of the industrial and biological importance of the C02- NH3-H20 system, the equilibrium behavior of reactions involving the carbamate has not been established experimentally. It is proposed to establish this behavior over a range of concentrations and temperatures. ***